CAREER: Al-free Vertical Cavity Surface Emitting Lasers (VCSELs) for Reliable, High-Single-Mode Output Power

Program: Physical Foundations of Enabling Technologies CAREER Competition Proposal Number: ECS-9734283 Principle Investigator: Luke Mawst______ Title: CAREER: Al-free vertical cavity surface emitting lasers (VCSELs) for reliable, high-single-mode output power Abstract This proposal is aimed at (1) developing aluminum-free, InGaAsP/GaAs-based vertical cavity surface emitting lasers (VCSELs) for high reliability and high single-mode output power, and (2) to integrate III/V compound semiconductor device design principles and fabrication into the undergraduate course curriculum at the University of Wisconsin-Madison. This proposal is recommended for a CAREER award at $200,000 for 48 months.